Benthic Carbon Oxidation, Denitrification, and Nitrogen Isotope Fractionation in Continental Margin Sediments

Benthic carbon oxidation, denitrification, and benthic fluxes will be studied in continental slope and deeper continental margin sediments off the Pacific Northwest coast and the coast of western Mexico. Previous work off Washington State indicates that a significant amount of the expected carbon rain to shelf sediments is swept off the shelf and is not accumulating or being oxidized on the upper slope. Others have suggested carbon oxidation in sediments near the base off the continental slope is anomalously high and that these sediments account for a major portion of the total ocean basin sediment metabolism. As high sedimentary carbon oxidation is frequently accompanied by denitrification, denitrification in slope and deeper sediments could be important in the marine combined nitrogen budget. Specific questions to be addressed are: 1) What are the carbon oxidation rates and associated benthic fluxes in slope and deeper continental margin sediments, are rates anomalously high, and are there relationships between flux and variables such as depth, distance from shore, and dissolved oxygen? 2) What is the magnitude of denitrification in these sediments? and 3) What is the magnitude of the isotopic fractionation during denitrification and does it depend on whether the denitrification takes place in the sediments or in the water column?